Routing in High Speed Networks

The rapid development of fiber-optic technology has made possible data transmission speeds of gigabits per second. This research explores routing algorithms for such high speed networks. It is believed that the development of high speed networks will proceed in two phases. In phase one, the topology of current networks will remain the same, but the relatively low speed links will be replaced with optical fiber links. In phase two, new network architectures specifically suited for high speed links will be developed. This research will develop routing algorithms for both phases. In particular, optimization-based routing and network reconfiguration algorithms are to be developed for phase one and deflection routing for networks with regular structures for phase two.